Integrated Approach to Environmental Chemistry for Tribal College Students

Chemistry (12)

This award provided funds to purchase several pieces of equipment for use in the Salish Kootenai College Environmental Laboratory (SKCEL), associated with Salish Kootenai College. This laboratory is providing practical experience for the native American students enrolled in the Environmental Science program as they monitor the environmental quality of tribal lands. The laboratory is adapting research and/or EPA protocols for the analysis of inorganic species and implementing the analyses into various courses. The educational and practical experience of the student is being enhanced by the introduction of modern instrumentation and analytical methodology into these courses. The award is also allowing the Principal Investigator to plan an additional course, Environmental Chemistry I, that will become part of an expanded Environmental Science curriculum.